Molecular Analysis of a Chloroplast Protein Import Intermediate

The mechanism of protein translocation across cellular membranes is not well understood. This proposal will focus on the translocation of proteins across the two membranes of the chloroplast envelope during the course of protein import into pea chloroplasts. It is the goal of this proposal to define and characterize a protease resistant fragment that is trapped when the organelles are exposed to low temperature or when photophosphorylation is blocked by the uncoupler nigericin. Three alternatives have been proposed to account for the formation of a protease resistant import intermediate. These are: A) a two step process in which the precursor successively crosses first the outer envelope membrane and then the inner envelope membrane; B) and alternative two step process in which the precursor spans the intermembrane space while crossing both the outer and inner envelope membranes; and C) a one step translocation mechanism at envelope membrane contact sites. We propose to test these alternative import pathways in an in vitro chloroplast import assay. For this assay, specific mRNAs encoding the small subunit of ribulose 1,5-bisphosphate carboxylase precursor (prSS) will be expressed by in vitro transcription from plasmids. The precursor proteins will be translated in a cell free wheat germ translation system. By modulating the temperature of import, we will define the temperatures at which the protease protected fragment accumulates as well as the permissive temperature range of import. The trapped intermediate will be analyzed to determine: a) which domain or region of the precursor is protected from proteolysis; b) in which chloroplast compartment the precursor fragment is protected; c) if other chloroplast precursors follow a similar import pathway; and; d) the biochemical basis of import inhibition by low temperature and nigericin. It is expected that the results of this study will not only serve as a model system for other protein translocation pathways in the cell, but will also expand our understanding of chloroplast biogenesis.